CAREER: 3D Sketchpad

This research targets a suite of tools (called "3D Sketchpad")
for creating interactive 3D illustrations. Example applications
include a teacher explaining physics, an archaeologist recreating
a model of an ancient village, a high school student producing an
eye-catching animation, and a physician explaining a diagnosis to
a patient. The key innovation is to support 3D modeling by
drawing. The resulting content looks like the user's drawing, but
is 3D in the sense that the viewpoint can be moved interactively.
The long-range impact of this research is fourfold. First, tools
that let ordinary people create 3D content will dramatically
expand the applications of 3D graphics. Second, expert users will
design content that they would not have undertaken with current
tools because it would be too difficult or time-consuming. Third,
these tools support 3D content that is aesthetically closer to
traditional illustration than is currently possible. Finally,
this technology will propagate synergistically with the growth of
pen-based computing. Tools for creating 3D drawings will
ultimately be commonplace on tablet PCs, palm devices, and even
cell phones.

A key challenge is to develop new shape representations and
associated operations that support a drawing-based interface. The
researchers are developing a new representation, called a
"layered mesh", consisting of a multiresolution mesh that is
built up incrementally in layers. Each new layer responds
dynamically to changes in the previous layers. Layered meshes
support the addition of new structures (e.g. limbs of a human
figure) and surface details (bumps or bulges) at any
resolution. They produce piecewise-smooth manifold surfaces of
arbitrary topology. Additional challenges include the
development of new non-photorealistic rendering algorithms, new
interaction techniques based on gestural input, new methods for
generating animation via sketched input, and pattern synthesis
tools whereby new shape features, stroke patterns, and motions
can all be generated from provided examples.